CAREER: Quantum Optical Studies of Degenerate Atomic Gas

Theoretical investigations into the interaction of light with a degenerate Bose gas are undertaken in order to better understand the phenomena of Bose-Einstein condensation and the creation of an atom laser.